Collaborative Research: Integrating Antarctic Environmental and Biological Predictability to Obtain Optimal Forecasts

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

Many biogeochemical and biophysical processes are changing in the present and coming century. The mechanisms and the predictability of these processes are still poorly understood. Limits in understanding of these progress limits climate forecasting. Similarly, ecological forecasting remains a nascent discipline. Comparative assessments of predictability, both within and among species, are critically needed to understand the factors that allow (or prevent) useful ecological forecasts. This study will reveal the influence of climate system dynamics on ecological predictability across a range of scales, and will examine how this role differs among ecological processes, species and regions of Antarctic.

The project research will examine the predictability of Antarctic climate and its influence on seabird demographic response, predictability at various temporal and spatial scales, using the longest datasets available for several polar species. Specifically, the PI will 1) identify the physical mechanisms giving rise to climate predictability in Antarctica, 2) identify the relationships between climate and ecological processes at a range of scales, and 3) reveal the factors controlling ecological predictability across a range of scales (e.g., those relevant for short-term adaptive management versus those relevant at end-of-century timescales). These objectives will be achieved using the analysis of existing climate data and century length time-scales, Atmosphere-Ocean Global Circulation Models (AOGCMs), with coupled analysis of existing long-term demographic data for multiple seabird species that span a range of ecological niches, life histories, and study sites across the continent.